Kinetics of Plasma Sintering of Ceramic Materials

Ceramics are being considered increasingly for high temperature structural applications, as bearing surfaces and as cutting toolds. The current limitations are strength and fracture toughness. This project explores a novel technique, namely, plasm sintering ceramics, in particular of SiC and Si3 N4.